Molecular Technology Workshop: Techniques, Application and Breakthroughs

9353909 Carroll The proposal is to run a molecular biology laboratory workshop for undergraduate faculty from institutions in the New York Metropolitan area to provide them with tools needed to implement laboratory techniques in molecular biology into their courses. Twenty-five faculty members will attend a five-day residential workshop at St. John's University. Applications of techniques and current breakthroughs using this technology will also be discussed. Follow-up activities include an evening Lecture Series during the academic year focusing on the impact of molecular biological techniques on current knowledge in cell and molecular biology. SJU faculty and invited speakers from other Metropolitan area research institutions will present these lectures. Informal discussions will follow the lecture, facilitating networking among the participants, SJU faculty and invited speakers. Time will be made available on those evenings for consultation and discussion with SJU faculty concerning implementation of laboratory exercises by undergraduate faculty participants. In addition, one session of the follow-up activities will be devoted to informing participants of grants opportunities that can help them obtain equipment to use the molecular techniques in their courses. ***